Competition and Ion-Selectivity in Non-Covalent Interactions

In this award, supported by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. James Lisy of the University of Illinois at Urbana-Champaign will conduct research to study the cooperative and competitive effects in ion-molecule interactions. The ion-molecule complexes will be studied with mass-selective mass spectrometric detection, coupled with infrared laser spectroscopy. The ultimate goal of the research is to gain a better understanding of the competition between the different kinds of non-covalent interactions in systems that influence ion selectivity and transport in biological systems as well as materials science.

The proposed research will train research students in modern experimental techniques, and will provide basic knowledge that could help lead to improvements in areas of health and energy technologies.